Scholarship Initiative in Chemistry and Physics

Sixteen freshmen students majoring in chemistry or physics divided into two cohorts of eight are receiving annual scholarships of $9,750. The first cohort is receiving four-year scholarships funded by this S-STEM grant. The second cohort will be receiving three-year scholarships from S-STEM funds followed by a one-year scholarship from the university.

Noteworthy features of the project include the combination of a sufficient pool of scholarship candidates and the capacity within the chemistry and physics programs to absorb the increased enrollment, the involvement of the entire chemistry and physics faculty in the project, and the available student support services. Continuing a long established graduation requirement, the scholars are undertaking a year-long senior capstone research course. Since course credit is being received for these projects and is included in the minimum credit hours required for graduation, the requirement is being permitted within the S-STEM program.